Development of a Digital Signal Processing Laboratory for Electronics Engineering Majors

This project develops a computer-based interactive digital signal processing laboratory where students design and implement various digital filters in real time. The project required acquisition of computer worksttions and digital signal processing hardware and software. This laboratory experience gives the students "hands-on" experience with real-time digital filter implementation. This award is being matched by an equal amount from the principal investigator's institution.